Stanford Engineering Research Experience for Teachers

This award provides funding for a three year continuing award to support a Research Experiences for Teachers (RET) in Engineering Site program at Stanford University, entitled, "Stanford Engineering Research Experience for Teachers (SERET)", under the direction of Dr. Sheri D. Sheppard.

The SERET program, an integrated center of excellence at Stanford University, will focus on the multi-disciplinary nature of engineering by placing a total of 25 STEM teachers in grades 6-14 in one of nine engineering departments and 49 independent labs, centers and institutes on campus for an 8 week summer hands-on research experience. This summer program will be followed up by development of engineering-based lessons to help students bridge to real-world experiences by showing how concrete and applicable engineering concepts connect what is learned in school to what goes on in the outside world.